Minorities in Mathematics, Science and Engineering Regional Center

This project supports a center whose programmed activities include: (a) extended-time and enrichment experience; (b) provide supplemental instruction to teachers, both elementary and secondary; (c) creation of direct interaction between math, science and engineering professionals with students of all levels.//